CIF: Medium: Collaborative Research: Subspace Matching and Approximation on the Continuum

In a diverse range of application areas--including astronomical
imaging, microscopy, wireless communications, radar, sonar, and
many others--one must confront the problem of estimating or
extracting information from a signal that is governed by a small
number of unknown (continuous-valued) parameters. Customized to
each of these applications, unique methods for handling these
unknown parameters have been proposed in the past. This research
involves the development of a unified framework for addressing
problems in all of these areas systematically, efficiently, with
awareness of the fundamental limits, and with provable accuracy.

There are two main components of this framework. The first
component involves the development of models where the signals of
interest lie within or close to a subspace or a union of subspaces.
In the case where the underlying parameters for the signal are
continuous-valued, this is a challenging task. Rather than attempt
to simply discredit these problems (a program potentially fraught
with difficulty), this research involves the development of finite
approximations for a locally infinite range of subspaces using
efficient local subspace fits whose dimensions match the effective
number of local degrees of freedom. The second component of this
framework consists of techniques for identifying the range of
subspaces responsible for generating a signal from a set of
discrete observations, confronting difficulties posed by the
coherence, by the continuous nature of the parameter space, and by
the fact that some signals may be synthesized from a narrow (but
continuously-indexed and therefore infinite) range of subspaces.
These components combine to enable the efficient acquisition,
processing, and estimation of signals arising from the
parameterized subspaces model.